Conference: 2026 North American High Order Methods Conference

The North American High Order Methods Conference (NAHOMCon) supports the development of advanced mathematical techniques necessary for solving complex problems across science and engineering. These methods are vital for modeling situations where data is sparse or where solutions change rapidly, such as in predicting climate patterns, improving healthcare through bioengineering, and enhancing national security through better aerospace simulations. By providing funding for registration and travel for early career participants, the project invests in the next generation of American scientists, ensuring that graduate students and postdoctoral researchers can collaborate with experts to jump-start their careers. This initiative directly addresses national priorities in artificial intelligence by exploring how high-order mathematics can be used to improve machine learning algorithms for understanding complex dynamics. Furthermore, the application of these methods to bioengineering supports advancements in biotechnology, contributing to the nation's health and prosperity.

The project facilitates a technical meeting in June 2026 in Santa Fe, New Mexico, focused on the development and application of high-order numerical methods. These methods are crucial for resolving multiple scales in solutions in diverse fields such as aeroacoustics, electromagnetics, and fluid dynamics. The technical program covers a broad range of topics, including spectral methods, high-order finite difference methods, h/p finite element methods, discontinuous Galerkin methods, and ENO/WENO methods. The scope also includes emerging areas like physics-based surrogate simulations and reduced-order modeling. A significant portion of the program is dedicated to the professional development of early career scientists, with at least fifty percent of talks delivered by students or postdoctoral fellows. The conference website is: https://web.cvent.com/event/be612580-faef-4a5e-8b96-3a707a947872/summary